Thermal and Tectonic History of the Hudson Valley-Little Mountains Thrust Belt Using Structural Geometries, Thermal Indices, and Thermal Modeling

Considerable research interest has recently been focused on fold-and- thrust belts, not only on the geometry and kinematics but also on their thermal evolution. This project will utilized a well-studied fold-and- thrust belt in the Hudson Valley of New York to attempt to distinquish burial heating effects from conductive heating from overriding thrust sheets. Regional down-section trends of illite crystallinity and vitrinite reflectance will be documented in order to establish relative temperature trends form the Catskill Mountains into the Hudson Valley- Little Moutains thrust belt. These temperature estimates from thermal maturation indexes, together with palinspastic restoration of thrust geometries, will be used in constructing thermal models illustrating the thermal and structural evolution of the region. Results are expected to demonstrate whether or not significant heating occurred by over thrusting, and these findings will have wide importance.